PostDoctoral Research Fellowship

This award is made as part of the FY 2014 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Nike Sun is "Probability Theory and Statistical Physics." The host institution for the fellowship is the Massachusetts Institute of Technology, and the sponsoring scientist is Dr. Scott Sheffield.